International Workshop on Advances in Metabolic Mapping Techniques for Brain Imaging of Behavioral and Learning Functions; November 7-9, 1991; Austin, Texas

This action is to support the international participants who are to attend a workshop dealing with metabolic mapping techniques for brain imaging during behavioral functions. This workshop will be the first meeting to review state-of-the-art applications of a new generation of cell metabolic mapping techniques capable of visually imaging brain functions related to animal learning and behavior. The potential impact of these functional mapping techniques for elucidating brain mechanisms of behavior is enormous. This workshop brings together leaders in this field from around the world and seeks to formulate recommendations for the directions of future research.